ALTAIR Radar Investigations of Equatorial Electrodynamics and Plasma Structure

A major goal of the CEDAR (Coupling, Energetics and Dynamics of Atmospheric Regions) programs is an understanding of global ionospheric-thermospheric coupling. The equatorial region is of major interest in the overall understanding of the global picture. This project proposes to carry out extensive coordinated observations centered around the ALTAIR, an incoherent scatter radar located in the Kwajalein Atoll, Marshall island. The experiments would include an HF/UHF frequency- agile radar on Kosrae, East Coroline Island and an optical facility (Fabry-Perot interferometer and all-sky low light level image) on Wake Island. The science studies will center around observations of electron drift in the equatorial electrojet, and the vertical F-layer motion. Much of the first year observational data base will be acquired during an extensive NASA rocket campaign scheduled for the summer of 1990.//